Molecular Phylogenetic Studies of Parasitic Plants

9407984 Nickrent A diverse group of flowering plants, through the course of their evolution, has become parasitic on other plants. These include the familiar Christmas mistletoe and sandalwood as well as less familiar plants such as Rafflesia, known for producing the largest blossom among all flowering plants (one meter in diameter). Some plant parasites (so-called holoparasites) have lost their ability to make nutrients via photosynthesis and must rely entirely upon their host for nutrition. Loss of photosynthesis has occurred because genes required for this process that reside on the chloroplast have been mutated or lost. One goal of the project is to determine which such genes are present or absent on the chloroplast of several holoparasites. Although chloroplast genes have proven especially useful in resolving phylogenetic relationships among many flowering plants, such genes may not be present in the holoparasites. For this reason, alternate nuclear ribosomal genes are being analyzed and sequenced. Preliminary data show high rates of mutational change in ribosomal genes of several parasites, indicating that these sources will prove useful in examining genus and family level relationships. Because ribosomal DNA is essential for protein synthesis, high levels of mutational change in holoparasitic plants should provide insight to structural and functional constraints on protein-related physiologies in these plants. As well, the nuclear DNA characters, and where available the chloroplast data, will help answer questions about the genealogical affinities of various parasitic plants with reduced morphologies.